Group Travel for Us Participants in the XXIV International Congress of Psychology to Sydney, Australia, August 28 - September 2, 1988

The American Psychological Association will administer a travel grant program for U.S. participants in the 24th International Congress of Psychology to be held August 28 . September 2, 1988 in Sydney, Australia. The meeting, held every 4 years, is sponsored by the International Union of Psychological Sciences (IUPsyS) and it's 46 national members. Acting for the U.S. National Academy of Sciences, the U.S. National Committee for the IUPsyS played an active role in developing the Congress program, assisting the hosts, the Australian Psychological Society.